Effective Field Theories and Gluonic Degrees of Freedom in Nucleons and Nuclei

Atomic nuclei account for nearly all the mass of ordinary matter, yet one still does not fully understand how their structure emerges from quarks and gluons, the elementary building blocks governed by the strong nuclear force. This project develops new theoretical tools to clarify the role of gluons within protons, neutrons, and nuclei. A particular focus is on how glueballs, still-unconfirmed particles composed solely of gluons, and glue-rich states may influence nuclear structure. The work also improves the interpretation of precision experiments at the Fermi National Accelerator Laboratory that search for signs of new particles and forces beyond the current Standard Model of particle physics. The project links nuclear theory directly to experimental measurements at major U.S. facilities, including Jefferson Lab, Fermi National Accelerator Laboratory, and the future Electron-Ion Collider. It provides theoretical predictions to guide searches for unusual nuclear states and to reduce uncertainties in muon-to-electron conversion studies. Graduate and undergraduate students gain training in modern nuclear theory, computational modeling, and connections between theory and experiment. Public outreach activities help explain fundamental nuclear science and its importance to society.

This project develops new theoretical tools to understand how nuclear structure and hadronic dynamics emerge from the quark-gluon degrees of freedom of Quantum Chromodynamics (QCD). The work introduces a novel nonrelativistic effective field theory for scalar particles (sNR-EFT), enabling systematic treatments of pions, kaons, and other spin-0 states relevant to low-energy nuclear processes. By combining this framework with gradient-flow renormalization techniques, the project yields improved predictions for the properties of pionic and kaonic atoms, thereby informing the extraction of low-energy QCD parameters. A major thrust explores gluonic excitations in QCD by studying possible glueball-meson and glueball-nucleon molecular states. Using EFT methods informed by the QCD trace anomaly and lattice inputs, the project generates predictions for the masses, widths, and photoproduction signatures of these exotic states, providing theoretical guidance for searches at Jefferson Lab and other accelerators. The project also advances the theoretical foundations for charged-lepton-flavor-violating muon-to-electron conversion, a key probe of physics beyond the Standard Model. By evaluating nucleon matrix elements of quark- and gluonic operators, including experimental information from threshold J/\psi photoproduction, the work reduces major theoretical uncertainties relevant to Mu2e’s forthcoming results.